U.S.-Germany Cooprative Research: Spin Dynamics of Mesoscopic Magnetic Systems

9981674
Luban
This award supports Marshall Luban, Paul Canfield, Alan Goldman, Constantine Stassis, and a graduate student from Iowa State University in a collaboration with Klaus Baerwinkel of the Department of Physics at the University of Osnabruek, Germany. The project will focus on the rapidly evolving and inter-disciplinary field of mesoscopic magnetism, which combines aspects of chemistry and physics. The main goal of the new field is the understanding of the evolution of magnetic systems that contain on the order of tens of interacting magnetic ions. The U.S. and German groups contribute expertise in organic and inorganic chemistry, molecular and condensed matter physics, as well as the necessary mix of theoretical and experimental expertise necessary for the synthesis, characterization, and theoretical analysis of new material systems. The scientists involved in the collaboration are experts in their fields, the facilities available are state-of-the-art, and the projected result is an understanding of the fundamental question of when clusters of magnetic spins begin to exhibit new behaviors as a function of cluster size.